I/UCRC for UMass-Industry Research on Polymers (CUMIRP- Sabbatical of Mount Holyoke College Faculty

This supplemental award funds the Industry/University Cooperative Research Center for Polymers (CUMIRP) at the University of Massachusetts, Amherst, for two years to support a sabbatical by Dr. Sheila Browne, Chemistry Department Chair, Mt. Holyoke College. This sabbatical will be to perform a research project at (CUMIRP). Dr. Browne will be conducting research on the enzymatic processes involved in polymer formation in the granules of bacteria, in collaboration with Dr. Robert W. Lenz and attending graduate polymer courses. Dr. Browne plans to teach a polymer course at Mt. Holyoke College which will be based on the material that she learns while on sabbatical at the University of Massachusetts. This course will become a regular advanced course in the Chemistry Department at Mt. Holyoke for chemistry majors. In addition, Dr. Browne, who is part Cherokee Indian, will make a number of trips to visit Cherokee tribes in North Carolina and Oklahoma to establish a program to recruit American Indians into science and hopefully into chemistry. The Program Director recommends that the University of Massachusetts, Amherst be awarded $64,000 for two years for support of sabbatical for Dr. Sheila Browne.